Building Evaluation Capacity from the Inside Out: A Model for Funding Agencies

The proposed project is designed to develop and test a model to build evaluation capacity in agencies, organizations and programs focused on increasing the diversity of the STEM workforce. Specifically project goals are to improve the funding agency's ability to assess the effectiveness of their efforts, to identify effective innovations, to develop a replicable model to facilitate capacity building and to disseminate the model widely. Objectives are focused on strengthening/improving the data collection process and testing the resulting model in several agencies (NSF, NIH, GE Foundation) that fund efforts to increase the diversity of the STEM workforce. Activities include document review, the development of an evaluation template and preparation of technical manuals to guide agency efforts.